Collaborative Project Between MCEC and CPACT: Experimental Batch Control and Optimization

East Carolina University is establishing an international collaboration with the Center for Process Analytics and Control Technology (CPACT) on a currently funded Industry/University Cooperative Research Center (I/UCRC) for Measurement and Control Engineering. This project, "Experimental Batch Optimization", research software being developed at Oklahoma State University will be implemented at East Carolina University where it will receive in-situ spectroscopic measurement and process measurements from up to four micro-scale (50 mL) laboratory batch reactor. Funds will be used to support one undergraduate student to spend an extended stay of 2 months per year at Strathclyde University in Glasgow, Scotland.